RUI: Development of a Unified Classification Scheme for Crustacean Hemocytes

The major goals of the proposed research are to expand the classification scheme previously developed for decapod crustaceans to other major crustacean groups and to enhance our understanding of the function and origin of decapod hemocytes. The specific questions to be addressed are: 1) Can a unified classification scheme be developed for crustacean hemocytes?, 2) What are the relationships between circulating hemocytes and hematopoietic tissue during the molt cycle? and 3) What is the role of hematopoiesis in the crustacean "immune" response? Because hemocytes appear to perform identical physiological rolesin all crustaceans, it is reasonable to expect that non- decapod crustaceans, like the decapods will have two hemocyte lines responsible for distinct functions. The proposed unified classification scheme for crustacean hemocytes will be based on the suite of morphological, cytochemical and functional criteria previously developed in this laboratory. If the unified scheme proves feasible, it will facilitate interspecies comparisons and interpretations of morphological, physiological and biochemical studies of hemocytes. Undergraduate students will be involved at every level of this project. Although much research is directed toward the understanding of immune function in mammals that are good models for the human, little is known about the analogous defense responses in invertebrates. This research will contribute to basic knowledge of the blood cell types involved in the defense responses of crustacea. While of interest for its own sake, this knowledge is also fundamental to the future development of techniques to prevent or treat diseases in lobsters, shrimp, and crabs in their natural habitats or grown under controlled conditions for human consumption.